Oceanographic Technical Services Program

0071349
Coale
This award to San Jose State University provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Point Sur, a research vessel operated by Moss Landing Marine Laboratories as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies in the waters along the central California margin and adjacent regions in CY2000 and beyond.
***